US-Germany Workshop on Arabidopsis Functional Genomics, June 29-30, 2002, Seville Spain

This award supports an international workshop to bring awardees of the Arabidopsis Functional Genomics Networks program funded by the German Deutsche Forschungsgemeinschaft and of the Arabidopsis 2010 Project funded by the National Science Foundation. The workshop is to take place on June 29-30, 2002, in Seville Spain, during the XIIIth International Arabidopsis Research Conference. The goal of the workshop is to provide a forum for the two groups of scientists to meet face to face and maximize the opportunity to coordinate their research and to develop research collaboration where appropriate. The two programs share the same goal of identifying the function of all Arabidopsis genes by the year 2010. Representatives from the 2010-like programs in other countries will be invited as observers so that international collaborations could be expanded beyond Germany and the US. One of the expected outcomes would be an increased exchange of students and young scientists between participating laboratories.